CSR: Small: Managing Multicore Energy for Emerging Applications and Devices

Multicore systems-on-a-chip have permeated every segment of the
digital market, from servers and supercomputers, to desktops and smart
phone/mobile devices. Innovative applications continue to emerge that
integrate user interactivity via mobile devices with the power of
high-end computation and large-scale storage. These applications tend
to demonstrate dynamic and diverse execution behaviors, requiring
close tracking in order to manage resource consumption. Inherent
application behavior variations and resource requirements, coupled
with complex interactions due to contention for shared resources,
present new challenges for efficient, dependable, and sustainable
advances in computing and information technologies.

This project will develop foundational system mechanisms to manage
individual cores, memory, and power/energy consumption on
multicore-based systems, and explore resource allocation policies that
use these mechanisms. A new online multicore power model will allow
power and energy tracking at a fine-grain level, combining available
hardware-based power measurements with event-based modeling and
attribution of power for shared resources. Accuracy will be improved
via coarse-grain measurement-triggered online model recalibration. A
new operating system mechanism, power containers, will be developed to
allow application-defined boundaries for resource tracking, breaking
from the traditional thread and process boundary resource tracking in
state-of-the-art operating systems. Further optimizations will be
explored to lower the overhead of resource tracking, allowing online
power accounting to scale to large core and resource counts. Finally,
new techniques will be developed to enable use of the power containers
to control and isolate power usage in an application-defined manner.

This project will enhance the power protection, energy efficiency, and
dependability of multicore-based computer systems. The techniques
developed can be broadly applied to emerging dynamic applications in
data centers, desktops, and mobile devices. In particular, power
containers will identify and mitigate (either malicious or
unintentional) power anomalies (execution that results in unusually
high power consumption), in both high-end servers and multi-core and
multi-accelerator smart phones. The success of this project will
contribute to the long-term sustainability of the world's fast
evolving digital economy and society.